Exposing Secondary Teachers to Engineering Design By Developing Virtual Laboratories

PROPOSAL NO.: 0230587
PRINCIPAL INVESTIGATOR: Nippert, Charles
INSTITUTION NAME: Widener University
TITLE: Exposing Secondary Teachers to Engineering Design By Developing Virtual Laboratories

ABSTRACT

The engineering approach to design is rarely included in high school courses partially
because teachers lack a thorough understanding of design and the approach to design. A
goal of this project is to have high school educators learn and practice the
fundamentals of engineering design using a subject with which they have some expertise
as a starting point. These pre-service science teachers will design and construct, with the
help of an engineering professional, an interactive Internet based Virtual Laboratory to be
used in a high school physics course. The resulting software will then be tested and used in a high school setting. This approach allows the pre-service scholars to share their educational expertise while dealing with the technical aspects of web-site design and simulation of scientific
phenomenon. Much research has proven that experts approach problems differently than
novices. This project will teach pre-service science students the fundamentals of engineering
design by presenting them a realistic design problem, and the experience of setting up of a instructional web- site about it.

.